RUI: Approximation of the Multiplicatively Weighted Crystal Growth Voronoi Diagram with k-gon Distance Functions

9402791 Schaudt The goal of this project is to investigate the multiplicatively weighted crystal growth Voronoi diagram, by itself and by using a k-gon distance function. Algorithms will be devised, analyzed, and implemented for both kind of diagrams. ***